A New Spectrophotometer for Stratospheric Ozone Measurement

Current instruments for solar ultraviolet and stratospheric ozone measurements are expensive to purchase and operate. The proposer aims to develop a low-cost solar ultraviolet scanning spectroradiometer, suitable for moderate resolution (1nm) measurements of solar irradiance in the UV-B spectral range, 290- 320nm. The objectives of this instrument would be solar UV-B and column ozone measurements for the detection of secular trends. Proposer plans to design and construct a Seya-Namioka nonochromator in order to determine the actual light throughput of the proposed spectroradiometer. Then the proposer will design, construct and evaluate the semiconductor detector circuit. The proposed instrument would be available for global monitoring of solar UV increases and stratospheric ozone depletion.